Relative and Absolute Plate Motions Over the Past Several Million Years

This award continues support of studies of current plate motions. In this grant period the PIs will be re-evaluating closure about the Indian Ocean and Azores triple junctions, investigating limits on motion along the Owen Fracture Zone and the implied limits on motion between India and Australia, and studying limits on the motion and boundary between the North and South American plates, and building a self-consistent global relative plate motion model.